An Automated DNA Sequencer for the Department of Biological Sciences, University of Alabama

Award abstract - DBI-0070351

"An Automated DNA Sequencer for the Department of
Biological Sciences, The University of Alabama"

Accumulating genomic data provides an opportunity to examine evolutionary relationships within a wide variety of aquatic species. On going phylogenetic studies of snails, bivalves, sunfishes, basses, and zoosporic fungi provide a wealth of information on the ecology, biogeography, and evolution of morphological and life-history features of these diverse groups.

An automated DNA sequencer will be used to conduct genomic studies more efficiently and accurately on vertebrates, invertebrates, and microorganisms. The specific equipment to be used is the LI-COR 4200S-2 Gene ReadIR DNA Analysis System. The LI-COR system produces high quality raw image data by electrophoretically separating labeled DNA and automatically scanning gels for fluorescence at two infrared (IR) wavelengths. LI-COR produces high accuracy reads and eliminates the need for radioactive labeling. In addition to DNA sequencing, the LI-COR system has hardware and software capabilities for microsatellite DNA research.

In addition to increasing research productivity and output, this equipment will provide excellent training opportunities for students with an interest in biotechnology and genomic research. Virtually all DNA sequencing is conducted today with an automated sequencer. Having the equipment in the Biology Department will provide valuable hands-on training and increase the competitiveness and knowledge base of graduate and undergraduate biology students at the University of Alabama.